Doctoral Dissertation Research in Geography and Regional Science

In developing countries such as India, as much as one-third of the population lives below the poverty line. Since most of the poor live in rural areas, national and state governments have directed their economic development policies for alleviating poverty to rural localities. The relative success of alleviating poverty is geographically variant and seems to be related to the constraining and enabling effects of the local ruling class. This project will attempt to answer why programs for the alleviation of poverty in rural India are more successful in some villages and states than in others, and it offers a theoretical framework for evaluating this geographical variation. Two specific rural development programs will be examined. A multivariate analysis will establish the degree to which sub- districts with high levels of success in implementation of these programs have lower incidence of poverty. Areas of very high and very low success rates will be studied in detail in terms of the relations among local state officials, local ruling classes, and party leaders, and local organizations representing lower classes. Unstructured interviews and data from local archives will serve to illustrate that local variation in policy implementation success rates depends upon local social and political structures. The results from this project should demonstrate the relative importance of local elites, bureaucracies and organizations representing the poor in explaining the geographical variation in the success of various policies to alleviate local poverty. These results will have important implications for rural economic development policy makers in developing nations in terms of designing implementation programs to raise the standard of living of large numbers of poor households.